CyberAI SFS: Secure and Trustworthy AI Research and Training Program (STAR)

Artificial intelligence (AI) is rapidly transforming government operations, critical infrastructure, and national security systems. At the same time, the United States faces a growing shortage of professionals who can both protect AI systems from cyber threats and apply AI to strengthen cybersecurity. This project will address that workforce need by supporting doctoral students at Vanderbilt University through the CyberAI SFS program. The project will prepare highly skilled researchers and practitioners for careers in federal agencies and national laboratories, where they will help secure AI-enabled systems and address emerging national security challenges. By expanding the pipeline of AI-security experts committed to public service, the project will advance scientific innovation, strengthen the nation’s cybersecurity workforce, and contribute to the national defense.

The Secure and Trustworthy AI Research (STAR) program will train full-time doctoral students in Computer Science. Scholars will complete an integrated curriculum consisting of advanced AI and cybersecurity coursework aligned with the National Initiative for Cybersecurity Education (NICE) Workforce Framework and will conduct faculty-mentored research in secure and trustworthy AI. Research activities will address privacy-preserving AI, trustworthy and human-aligned AI infrastructure, AI-enabled cyber defense, and resilient agentic AI systems. The program will provide experiential learning through internships with federal agencies and national laboratories, interdisciplinary collaborations, and engagement with the National Security Agency Education Partnership Agreement program. Expected outcomes will include eleven PhD graduates prepared for federal AI-security careers, new educational resources including an AI Attack and Defense course, research publications in secure and trustworthy AI, expanded outreach activities to K-12, and strengthened partnerships between academia and government. These contributions will enhance national capacity for education, research, and workforce development at the intersection of artificial intelligence and cybersecurity.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.